EMI Measurement in Electrical Engineering Technology

9451172 Johnson This proposal requests funding for an Electro-Magnetic Interference (EMI) emissions apparatus. The requested laboratory equipment will provide practical experience in measuring EMI emissions from design projects constructed by students in the Electrical Engineering Technology program. The analysis of data obtained from the measurements will lead to examples of corrective action required in a product development and manufacturing environment. This project will serve as a national model for integration of EMI measurements into Electrical Engineering Technology programs. The project addresses a need to provide engineering technology students with an awareness of environmental issues and to engage them in finding solutions to the problems.